The CUE Initiative on The Scientific Foundation of Software Engineering

ABSTRACT
0327252
Edmund Clarke
Carnegie-Mellon U

We believe that there is both a need and an opportunity to bring together important problems in software
development praxis with the theoretical advances that promise solutions. After consultation with the US National Science Foundation, the Chinese National Science Foundation, and the European Commission IST program, we propose to form an International Working Group in order identify such problems and related theoretical advances, and bring together the appropriate practitioners and scientists in a series of workshops. The outcome of a workshop may be the recognition of a gap in the theoretical foundations; filling that gap would then become an item in the research agenda. A different outcome may be the recognition that applicable theory is available but needs to be packaged for practical use. For example, the theory may be used as the foundation of a systematic method that can be applied in normal design; this work would become an item of an agenda for development rather than for research.